SBIR Phase I: Exhaust Mitigation Using Repurposed Industrial Waste

This SBIR Phase I project will develop a novel fly ash based material to mitigate exhaust pollution. This work will include the fabrication
and testing of novel substrates for exhaust pollution mitigation. These substrates will be fabricated from an industrial waste product, a new beneficial use of this material. This project will determine whether this material may be fabricated into a robust, high temperature substrate having requisite porosity and microstructure. The ultimate objective of this work is a
retrofit exhaust mitigation system for large diesel engines, available at a price that enables adoption in the world’s most cost-sensitive markets.

The broader/commercial impacts of the project will be the reduction of exhaust fumes from diesel engines; the reduction in the interior use of metal for exhaust pollution devices; improvement in overall environmental air quality; and a resultant recycling of an environmental hazardous waste- fly ash.